Dissertation Research: Effects of Market Economies on Ethnobotanical Knowledge Among Tsimane Communities in the Bolivan Amazon

9904318
Schmink / Garcia
This project supports the dissertation research of an anthropology student from the University of Florida, studying the ethnobotanical knowledge of Amerindians in the Bolivian lowlands. The student will examine the influence of market activity on the distribution of ethnobotanical knowledge, hypothesizing that knowledge will be less widely shared in communities more exposed to the market because of greater specialization in economic activities and lesser use of plants. The student will test the idea in three Tsimane Indian communities with different degrees of market exposure. Data on ethnobotanical knowledge will be collected through triads, rank order and multiple-choice tests. In addition the student will carry out biweekly interviews of plant use, monthly income surveys, and quarterly wealth surveys of the same individuals over a year to build a panel set of data on important variables that covary with knowledge. Cultural consensus analysis will be used to create scores on agreement on ethnobotanical knowledge, which (scores) will then be used as dependent variables to run multivariate analysis with economic, social and demographic variables. This research will be one of the first rigorous quantitative research to link cognitive outcomes with economic variables. In addition the project supports the training of a young social scientist, and advances our knowledge of this important area of the world.